CSR: Small: Collaborative Research: Instruction Address Translation Revisited

Applications continue to grow both in the size of their code and in the amount
of data they access. Whether on mobile, desktop, or server platforms,
applications are written in a modular fashion, relying heavily on common
functionality provided by a large number of libraries. Modern operating
systems leverage this commonality by sharing libraries across applications to
avoid duplicate copies of instructions in memory. However, operating systems
still maintain independent memory management (address translation) data
for each process, consuming memory resources proportional to the number of
simultaneously executing processes. The goal of this project is to enhance
the efficiency of memory system access and management for shared code
libraries. The success of these efforts will contribute to the long-term
sustainability of the world's fast evolving digital economy and society,
reducing computational waste and improving responsiveness. The education
component will include improving classroom instruction by contributing new
course modules as well as training graduate students in the importance of
efficient sharing.

This project involves designing novel hardware and software to promote
efficient access to shared code in a multi-tasking environment, including: 1)
new operating system memory management mechanisms and policies to eliminate
duplication and minimize cache and translation lookaside buffer (TLB)
footprint, examining the tradeoffs between the use of variable segments and
hierarchical page tables; 2) reexamining the need for caching translations
when utilizing emerging low-latency persistent memory; and 3) using available
protection support for safe translation sharing in modern TLBs in addition to
designing new hardware support to improve efficiency.